Many-Body Collision Dynamics Involving Particles and Antiparticles

9732150
Schulz
Many body interaction dynamics are probed in unprecedented detail for positron-atom, proton-atom and neutral Hydrogen-atom collisions. The experimental results will be used to resolve long standing questions concerning the direct and exchange collision amplitudes for these interactions.